Industrial-Academic Workshop to Foster Collaboration in Database Research

This workshop enables practitioners to discuss with some academic researchers technical and scientific issues in database implementation which have come up over the years. Talks are given by industry speakers about experiences they have had with difficult scientific or technical problems. This enables academics to see research from a practitioner's viewpoint and motivates the discussion on mutual support of academic-industrial research. Such mutual support might include visits from academics to industry or vice-versa, access to software packages, source code (possibly old source code), data sets, student visits to industry, industry support of students and so forth. In addition, the barriers to industrial-academic collaboration and technology transfer are to be discussed and potential solutions proposed. The objective of this workshop is to find out how to set up mechanisms of mutual support for academic-industrial research collaboration and to publicize these mechanisms. The results of the workshop will be disseminated via an online report and additional material will be made available at the workshop Web site.